Mathematical Sciences: Geometry in the Machine Age: A Regional Geometry Institute

Mathematicians at Amherst, Hampshire, Holy Cross, Mount Holyoke, Smith and Williams Colleges and the University of Massachusetts at Amherst will set up a Regional Geometry Institute beginning in January of 1991. The Institute will bring together researchers, graduate students, undergraduate students and college and high school faculty. The overall theme of the Institute will be the interaction between geometry and computation. The research part of the Institute will consider situations where computational techniques shed new light on classical geometric problems and it will examine topics that have come to the fore because of the existence of such techniques. The educational part of the Institute will explore how computers make it possible to uncover these themes at home and in the classroom and it will examine the opportunities this presents for the geometry curriculum at the high school and undergraduate levels.